Mathematical Sciences: On-Site Research to Advance Industrial Quality and Productivity

A fellowship program entitled "On-Site Research to Advance Industrial Quality and Productivity" is to be established, jointly sponsored by the National Science Foundation and the National Institute of Standards and Technology (NIST). The American Statistical Association will administer the program while NIST acts as the host agency. This program is designed to bridge gaps between quality assurance efforts in industry, academia and government through the formation of research teams of industrial, academic, and NIST statisticians and engineers. Possible areas of research for Fellows are statistical design of industrial experiments, process control, studies of advanced manufacturing systems, computing for engineering and industrial statistics, and calibration for manufacturing process control.